Systematics and Evolutionary Biology of the Genera Sennius and Stator (Bruchidae) of Northern South America

Bruchid beetles are parasitic on the seeds of their host plants, and their degree of host specificity may be an important factor in their geographic distribution and evolutionary history. Dr. Clarence Johnson is a recognized authority on the systematics and biogeography of South American bruchids, and he proposes continued investigation of their taxonomy, distribution, ecology and evolution. The proposed research would involve extended field collecting and the first application of new computer-based methods for reconstructing evolutionary relationships among bruchids. The proposed research will have impact beyond the narrow confines of beetle systematics. The patterns found among bruchid species and genera can be used to test biogeographic hypotheses based on other organisms. Beetle-host plant relationships will impact on a broad range of coevolutionary hypotheses. Application of modern analytical tools will serve as a model for entomologists in general.